High Accuracy Flow Controller for Process Control of Chemical Vapor Deposition

This research is to develop a compact flow sensor for high accuracy semiconductor process control. This sensor will be based on a new variation of infrared (IR) absorption spectroscopy called Spectral Correlation Detection. In this approach, the reactant concentration is quantified by IR absorption to control reactant flow rates for deposition or etching applications. This direct IR measurement contrasts with current methods which indirectly meter species flow rates. While this system will be assembled and calibrated for model metal alkyl compounds, such as trimethylgallium, this IR sensor is versatile and can be applied to a wide variety of deposition or etching species. The development of an IR vapor phase flow controller based on Spectral Correlation would have significant commercial application. This sensor would improve the quality of silicon, III-V and II-VI semiconductor devices, optical components, and thin films.